Presidential Young Investigator Award

This is a PYI application from a new Assistant Professor of Electrical Engineering. Dr. Hannaford received his Ph.D. from UC-Berkeley in 1985, and was employed by the JPL at Cal Tech until 1989. He has numerous publications in the area of human motor control. His plan is to continue his research to better understand how humans control their limbs, but he will be increasingly involved in robotics research as well. His plan is to use the understanding of the natural motor system to design robotic manipulators.